Designing Microelectronic Technologies through a Network- Based Simulation 'Hub'

EEC-9700762 Lundstrom Abstract This award provides funding to Purdue University under the direction of Dr. Mark Lundstrom, for the support of a Combined Research-Curriculum Development project entitled, "Designing Microelectronic Technologies through a Network-Based Simulation 'HUB'." This project will involve the development of a curriculum on the design of silicon and compound semiconductor technologies using advanced computer simulation tools. Students will learn to design fabrication processes, devices, and circuits and to integrate previously gained, course-specific knowledge. Unique features of this program are that its objective is to bring advanced, research-level simulation tools into the classroom and thereby into engineering practice, its emphasis on bringing the computational techniques that have been successful in the silicon industry to the compound semiconductor industry and its focus on the use of simulation by engineers who are not computational specialists. Producing engineers proficient in the use of simulation and computational prototyping can have a major impact on the way that such technologies are developed and at the same time respond to a critical need continually expressed by industry.